CAREER: On the Assessment of Volume Rendering Algorithms in Visual Computing

The field of visual computing is concerned with the storage, analysis, manipulation of sampled definitions of 3D objects and the resulting image synthesis. Given the ubiquitous use of imagery for graphics in architecture, engineering design and manufacturing, and entertainment, there is an ever-growing need for realism in displayed images. For serious uses of imagery in engineering and medicine, there is an additional need for assurances for accuracy and for providing ways to validate the image. This project will increase the level of understanding about the foundational aspects of image synthesis, an essential component of visual computing. Volume rendering and visualization algorithms are being increasingly used for image synthesis in visual computing systems. The project plans to specifically address the following issues: * Accuracy in volume rendering algorithms-Lack of concerted efforts to define and measure image quality has stymied the widespread use of visualization techniques and visual computing. * Volume Analysis- Given the noisy nature of the datasets and large sizes, there is a need to seek minimal correlated representations of the volumes and even rendering operators. * Perceptual metrics - The displayed image should preset meaningful information to the end-user. It would be useful to employ objective numerical tools to guide the generation of new images if desired. One approach to achieving this goals will be to use multiresolution methods including the wavelet transform. The work will be initially targeted towards the requirements of computational fluid dynamics engineers, marine geologists and medical imaging experts, given the access of Principal Investigator (PI) to the ERC, NASA Stennis and the University of Mississippi Medical center (UMMC) respectively.